Minority Postdoctoral Research Fellowship

Binding of epidermal growth factor (EGF) to its receptor triggers a series of cellular events that culminate in cell division. Phosphorylation of the EGF receptor at various sites has been observed after exposure of cultured cells to EGF and other growth factors. The major site of phosphorylation of the EGF receptor is threonine 669 Thr669). Recently, a novel growth factor-stimulated threonine-protein kinase, responsible for the phosphorylation of Thr669 has been purified in Dr. Roger J. Davis' laboratory. The research plan proposes the large-scale purification of "T669 protein kinase," the isolation and cloning of its gene, and the development of antibodies against it, in order to investigate the mechanism of activation of the novel kinase by growth factors and its possible role in the transduction of mitogenic signals. We will generate polyclonal antibodies to the kinase by injecting purified enzyme into rabbits or chickens, and monoclonal antibodies by injecting mice. The antibodies will be used together with molecular biology techniques in assays designed to investigate the mechanism by which growth factors activate "T669 protein kinase" in signal transduction for mitogens. The isolation of characterization of this novel growth factor- stimulated kinase could be very important for the elucidation of signal transduction mechanisms for growth factors. The regulation of kinases activities has been realized to be a key process in growth control.